PECASE: Seismic Hazard Mitigation: Innovative Directions in Research and Education

9733272 S. Dyke The focus of this CAREER research project is to develop innovative and implementable techniques for mitigating the devasting consequences of severe seismic events. In particular, the work will concentrate on the implementation of supplemental damping devices. Semi-active devices are considered here because they address most of the concerns brought forth about structural control, and are expected to advance the near-term acceptance of this technology. Specifically, magnetorheological (MR) dampers are new semi- active devices that are particularly suitable for civil engineering applications. They offer mechanical simplicity, low power requirements, environmental robustness, and demonstrated potential for developing forces sufficient for full-scale applications at a reasonable cost, and can be viewed as fail-safe in that they become passive dampers should control hardware malfunction. A number of important issues pertinent to practical implementation will be examined. Ultimately, guidelines which can be used by design engineers to employ these devices in new construction and retrofit applications will be developed. The control of both linear and nonlinear structures, and the use of single and multiple control devices will be considered, The performance of the MR damper will be compared to the active and passive systems for a wide array of excitation types and amplitudes. Analytical and experimental investigations will be carried out in parallel, using the facilities available in the earthquake engineering laboratory at Washington University which has recently funded the construction of this experimental facility. The primary objective of the educational program to provide students the Department of Civil Engineering with an understanding that structures are dynamic systems, and for the implications of this in their analysis and design, At the undergraduate level, an experimental facility will be provided in which students can study the response of structures to dynamic loads, incorporating, "hands-on" experiments into the cirrocumuli to introduce basic concepts in structural dynamics and providing opportunities will be created for students to participate in research projects in the laboratory. At the graduate level, a new course in experimental methods for dynamic testing will be developed to enable providing students to participate in state-of-the- art research and integrating experiments into the advanced structural dynamics course. Throughout the program, n-line exercises will be developed to assist students innprparing for the laboratories. The educational and research components of the project are designed to complement and enhance each other. The laboratory facilities, and experiments developed therein will provide the necessary tools to facilitate the cirrocumuli development. This integrated approach will provide students with an understanding of the dynamic nature of structures through illustrative experiments and state-of- the-art research projects. Furthermore, students at all levels will be introduced to this emerging technology.